ROA: Origins and Evolution of Duplicated Enzyme Loci in Fishes

Fish gene mapping studies have yielded the unexpected result that some chromosomal associations of enzyme genes have been conserved through more than 400 million years of vertebrate evolutionary divergence. Linkage relationships of duplicate enzyme genes in fishes further suggest that the vertebrate genome evolved through three tetraploidization (duplication of the entire chromosome set) events. Mapping of additional genes in fishes, as proposed in the current research project, should establish the validity of the chromosome duplication hypothesis and will allow predictions of the modes and rates of chromosome evolution in vertebrates. The identification of highly conserved chromosome regions may allow prediction of the chromosomal location of genes as yet unmapped in man and may identify groups of genes under stringent coordinate regulation. In this research a variety of genes will be mapped using both enzyme electrophoresis and histochemical staining and DNA restriction fragment length polymorphism linkage analyses.